New Laser Induced Deposition for Microelectronics Application

An exploration of a new laser induced liquid phase deposition process will be performed. For microelectronics repairing and pattern direct writing applications of electronic circuits. The work will focus on a new electromechanical device to accurately localize the disposing chemical and on new metal-organic precursors. Several new chemical strategies and a series of new Gold (1) compounds will be investigated to improve the electrical and mechanical properties of deposited metal films. The development of a piezoelectric ceramic ejector will substantially benefit the deposition performance with controllable application quantity and location of precursor solution. The goal of the program is to investigate the characteristics of the laser induced deposition process using liquid droplets generated by a piezoelectronic ejector. Laser- induced deposition process will be investigated using several, soluble precursor molecules and the deposited layers will be characterized.